Modeling Chromosome Aberrations

Sachs
9971169
Ionizing radiation produces chromosome aberrations, through
breakage and large-scale reshuffling of chromosomes. Using
fluorescent in situ hybridization techniques to paint various
chromosomes different colors reveals a rich variety of simple and
complex aberrations, each putatively indicative of two or more
DNA double strand breaks involved in one over-all misrepair
reaction. The investigator undertakes calculations on the
biophysical implications of current data on aberrations, and of
pulsed-field gel-electrophoresis data on DNA double strand break
clustering along chromosomes, relevant to the early stages of
aberration formation. Three basic molecular models for DNA break
misrejoining are compared. There are so many combinatorial
possibilities for this misrejoining that theorems, equations, and
computer simulations are needed for systematically interpreting
the extensive, elaborate current data. The main methods are: (1)
suitably adapting standard results of probability theory and
stochastic process theory, mainly on Poisson cluster point
processes; and (2), extending CAS (chromosome aberration
simulator) computer software. Collaborations with many different
experimental groups world-wide are continued. Models that assume
randomness of break induction and misrepair can characterize with
reasonable accuracy, using only two adjustable parameters, the
relative frequencies of many different types of aberrations and
their dependence on genomic content of the chromosome arms
involved.
Understanding the effects of ionizing radiation on cells is
an important part of fundamental biology. Chromosome aberrations
are complex cellular endpoints, copiously produced by ionizing
radiation and informative about basic mechanisms of DNA damage
production, repair, and misrepair. Aberrations are also robustly
implicated in the main areas of applied radiobiology, including
cancer risk assessment, estimating cell killing during
radiotherapy, and biodosimetry (i.e. judging past exposure of an
individual to radiation, e.g. after a radiation accident or an
astronaut's mission). Due to increased current interest and to
improved experimental techniques, there has been a flood of new
data on radiation-induced aberrations. The investigator studies
the underlying biophysics of chromosome aberration formation,
using state-of-the-art mathematical and computer methods. His
methods discriminate between the three current molecular models
of aberration formation, which are needed mainly to predict
levels of radiation damage in situations not yet measured
experimentally, such as doses too low to be readily tractable in
laboratory analyses but nonetheless of possible concern for large
populations. Mathematical and computer modeling is a
comparatively inexpensive way to maximize biological information
obtainable from the rapidly increasing databases and to help
guide experiments.